Computer-Aided Experiments for Introductory Chemistry

This project will produce and test at least six new laboratory experiences for students in general chemistry courses. The experiments will use computer-interfaced technology (IBM-PSL) in an environment in which students can truly experiment. Research Fellows on sabbatical leave will collaborate with the Principal Investigators to develop new experiments using the distance, light, pH, and temperature probes of the PSL system. The computerized data collection and analysis speed up the process of experimentation sufficiently that students are able to carry out more measurements, collect significantly more data, and solve more meaningful laboratory problems. This work, combined with previous work, will create a critical mass of laboratory experiences using the computer.